Scalable Iterative Solution of Large Linear Systems with Applications in Fluid Dynamics, Radiation Transport and Markov Chains

The solution of large systems of linear equations remains one of
the main bottlenecks in many numerical simulations throughout
computational science and engineering. Despite much recent progress,
there is still a great need for improved iterative solvers in such
areas as fluid dynamics, radiation transport, magnetohydrodynamics,
image processing, computational mechanics, acoustics, and so forth.
The increasingly important area of data mining and information
retrieval also makes heavy use of sparse matrix techniques and
necessitates reliable and scalable algorithms for linear equations
and eigenvalue problems. The PI will investigate efficient iterative
solvers with a focus on preconditioning techniques for nonsymmetric
and indefinite problems. The PI proposes to use a blend of algebraic
and problem-specific techniques to construct robust and scalable
solvers for linear systems arising from discretizations of problems
from fluid dynamics and radiation transport, as well as for solving
large sparse complex symmetric systems and for computing the stationary
vector of Markov chains.

The ultimate goal of research in computational mathematics is to
provide scientists and engineers the algorithmic and software tools
needed for the solution of challenging scientific and technical problems
of increasing size and complexity. The competitiveness of American science
and technology greatly benefits from (and to a large extent depends on)
the creation of innovative computational methods and software and by
the continuous improvement of existing techniques. Progress in the solution
of the problems targeted by the PI will have a positive impact on science
and engineering by enabling faster and more detailed computer simulations.
In addition, several graduate students (and possibly a few undergraduates)
will be impacted by this research either through direct involvement, or
through the positive effects this research will have on the PI's teaching
of computational and applied mathematics courses at Emory University.